Bayes and Empirical Bayes Model Selection

----------------------------------------------------------------------- Proposal Number: DMS 9803756 PI: Edward I. George Institution: University of Texas Project: Bayes and Empirical Bayes Model Selection Abstract: Bayes and empirical Bayes approaches for model selection are studied, developed and enhanced for a variety of different settings. First of all, theoretical frequentist risk properties of recently discovered empirical Bayes selection criteria are established for the canonical linear model setting. For graphical model selection, connections between frequentist and Bayesian methods are investigated and used to motivate new empirical Bayes methods. For wavelet representations, robust empirical Bayes selection procedures are developed which accommodate heavy tailed noise distributions. For Bayesian CART modeling, new families of structured hierarchical priors are developed. To facilitate and enhance model search, new MCMC algorithms are developed which move across sets of models rather than single models. These algorithms use new transition kernel steps, such as transplantation, which can rapidly traverse the kinds of multimodal model posterior distributions that arise in this context. These algorithms also incorporate stochastic heating and cooling to further increase movement. This research ultimately concerns the development of statistical methods for discovering systematic structure in large multi-variable data sets. This general problem is of substantial importance because of the explosive growth in the technology to collect and analyze such data. Indeed, such large data sets occur naturally in federal strategic areas of national concern including telecommunications, biotechnology, and climatology. A standard statistical approach in such settings is to search for "promising" statistical models within some prespecified, large, flexible class of potential models. Once found, the challenge is to estimate the mod el and draw meaningful inference. These tasks can be especially difficult when the class of potential models is huge, as is typically the case the number of variables is large. The main thrust of this work will be to develop new methods to confront these challenges and broaden the scope of the statistical approach.